Support of a Charter Vessel for the Collection of Live Marine Specimens for Neurobiological Research

The Marine Biological Laboratory at Woods Hole, Mass. is one of the finest facilities for basic biological research in the world. A great deal of their research is performed on biological specimens which are collected on a daily basis from the ocean around the institute. This action is to support the charter vessel which collects marine organisms for use in neurobiology.